U.S.-China Cooperative Research: Control of complex nonlinear systems with applications

OISE-0408925
Jiang

This is a U.S.-China cooperative research project between Dr. Zhong-Ping Jiang, Polytechnic University of New York and Professor Lei Guo, Chinese Academy of Sciences to study control of complex nonlinear systems to analyze complex interconnected systems such as networks and applications to fleets of aerial or space vehicle. This is an exciting project researching issues in the forefront of control theory. The success of this project will benefit the U.S. and Chinese students involved in this study. Both the U.S. and the Chinese scientists are experts in this area, and their skills are complementary. This research project will be jointly supported by the NSF and the Chinese Academy of Sciences.